Aspen Winter Astrophysics Conference: The Cosmic Distance Scale, January 17 - 23, Aspen, Colorado

This award offers partial support for the 1992 Aspen Winter Astrophysics Conference. These conferences have played a central role in the development or topics at the frontier of astrophysics for some years, and should continue to enhance fruitful collaboration between leaders in the discipline and many promising younger investigators.